Wind River Conference on Procaryotic Biology, to be held June 2001, 2002 and 2003

Support is provided for the 45th, 46th and 47th annual meetings of the Wind River Conference on Prokaryotic Biology, held at the Aspen Lodge, Estes Park, Colorado. The meetings are held annually each summer. This conference is primarily concerned with the biology of prokaryotes, and is the major annually occurring meeting devoted to this subject area. One significant feature of these meetings is their accessibility to graduate students and post-doctoral students, whose travel funds frequently are limited. Specifically to address this problem, funds are provided for travel and support scholarships to facilitate the attendance of graduate students and post-doctoral students working in various areas that comprise prokaryotic biology.